Mathematical models of cellular movements

Mogilner
0073828
Three mechanisms - protrusion of the lamellipodial actin
network, graded adhesion of the cytoskeleton to the surface, and
cytoskeletal contraction - acting in concert are both necessary
and sufficient to produce highly effective cell movement. Actual
rates and forces of protrusion depend on local concentrations of
actin monomers and polymers and a host of actin capping,
nucleation, polymerization and adhesion proteins near the cell's
leading edge. The investigator derives partial differential
equations that couple the chemical kinetics of all these protein
concentrations to the model of cytoskeletal mechanics. These
equations are solved analytically and quantify molecular
mechanisms of protrusion localization at the cell's leading edge
and regulation of protrusion rates and forces. Experiments
suggest that the force of the cytoskeletal contraction is myosin
powered. The investigator models the dynamics of actin filaments
and myosin clusters in physical and angular space and describes
the actomyosin dynamic contraction mechanism quantitatively.
Using this description, the investigator analyzes mechanochemical
feedback loops between systems of traction, protrusion and graded
adhesion within the frameworks of interactive computer models
varying in complexity. These models are applied to migration of
fish keratocyte and nematode amoeboid sperm. Comparison of
theoretical results with experiment clarify the roles of
cytoskeletal, adhesion and membrane systems in cellular movements
and concepts of motility, polarizability and directionality. The
models allow testing of plausible scenarios of cell movements.
Migration of animal cells is a fundamentally important
process underlying the phenomena of wound healing, morphogenesis
and cancer. Current experimental research is aimed at dissecting
the complex processes of migration into simpler phenomena that
can be more easily analyzed. The investigator models these
motility phenomena theoretically, which will allow biologists to
test quantitatively the existing qualitative ideas. Specifically,
the investigator examines mathematically the molecular basis and
the principles of self-organization of cell mechanics and
develops computer models that reproduce the observed patterns of
cell locomotion. Results of the modelling will provide a new
interdisciplinary level of understanding cell movements and new
methods of predicting cell behavior in important medical and
technological situations.